Positivity Conditions in Complex Analysis

Proposal Number: DMS-0200551
PI: John P. D'Angelo

ABSTRACT

An important aspect of complex analysis concerns inequalities
on absolute values of holomorphic functions or, more generally,
on norms of holomorphic mappings. In recent work the proposer
has developed a systematic approach to this subject. He
has given a complex variables analogue of Hilbert's 17th
problem, applied the techniques to proper holomorphic
mappings, and (with Catlin) proved an isometric imbedding
theorem for holomorphic vector bundles. Also he has recently
written a Carus Monograph entitled "Inequalities from Complex
Analysis", thereby laying a foundation for more work in this
area. The current proposal describes how to expand these
research directions and discusses possible mathematical
applications.

Although the proposal focuses on pure mathematics, one can
imagine the application to the sciences of some of this work.
For example, in Quantum Mechanics, an observable is a
self-adjoint (Hermitian) operator on a Hilbert space. The
proposal allows for a more general approach, by describing
a notion of self-adjointness for non-linear mappings. One of
the main ideas of the proposer's work has been to describe
various notions of positivity for such mappings. Several new
conditions arise; these conditions are equivalent in the
linear case from Quantum Mechanics, but distinct in general,
and therefore may lead to applications in physics. In
particular the proposer hopes to develop applications
of the non-linear analogue of the Cauchy-Schwarz inequality.